Sibling Speciation in Lichens

Lichens are important not only as the best-known example of biological symbiosis but also as sources of a huge array of unusual chemical products. These compounds characterize chemical races or "chemotypes" into which many morphological species have become differentiated over evolutionary time. The interpretation of these chemotypes, whether as polymorphisms within chemically variable panmictic species (and potentially of microevolutionary importance) or as reproductively isolated sibling species (and consequently of taxonomic significance), is the root of a long- standing controversy. The Culbersons at Duke University will investigate possible measures of gene flow among lichens, looking at the six different chemotypes of the morphologically identical Ramalina siliquosa complex. These lichens grow in bands on the rocky coasts of western Europe, and in this respect behave ecologically like distinct species. Tests will be made on laboratory cultures of lichen thalli grown from single-spore isolates taken from nature; parent and progeny samples will be made at the interfaces of the bands or zones of lichen chemotypes. Mixtures of chemotypes among the progeny of individual lichens will indicate the presence of sexual reproduction and gene flow in these lichens. The results will introduce new experimental techniques for study of the biological species concept into lichen systematics and open the door for genetic studies of these dual organisms.